Conference: 2025 Riviere-Fabes Symposium

This award supports the participation of graduate students and postdoctoral researchers in the "2025 Rivière-Fabes Symposium on Analysis and PDE" which is scheduled to take place April 25-27, 2025 at the University of Minnesota. The award gives early-career researchers and researchers without other sources of funding a chance to participate in the conference. In this way, the award supports the communication of state-of-the-art mathematical techniques and promotes the development of future generations of scientists working in important, cross-disciplinary fields.

The symposium focuses on recent developments in mathematical analysis, this year especially in areas involving geometric measure theory, singularity formation in fluid equations, computer assisted proofs, microlocal analysis and inverse problems, wave turbulence, and statistical physics. More information can be found on the symposium web page https://cse.umn.edu/math/riviere-fabes.